"RNA-Based Life Workshop" to be held November 15-18, 2001 at the Indiana University in Bloomington, Indiana

The "RNA-Based Life" Workshop will be held November 15-18, 2001 at Indiana University in Bloomington, IN. The objective of the RNALife Workshop is to provide a high caliber, interdisciplinary meeting for researchers with an interest in the many roles RNA can play in sustaining life, focusing on the single question, "How viable is life based on RNA?" The question is relevant to cutting edge efforts in metabolic engineering, molecular medicine, cell biology and studies of the origin of life. This will be the first meeting of its kind. It is intended to be international in scope and to provide extensive opportunities for interaction between established scientists from various fields of RNA research and the next generation of scientists. The meeting is open to principal investigators, postdoctoral fellows, graduate and undergraduate students and other interested scientists.